SBIR Phase I: Single Crystals for High Temperature, High Power Electronics

*** ABSTRACT 9660642 Pirzada This Small Business Innovation Research Phase I project will develop a novel process to produce single crystal silicon carbide. Silicon carbide possesses a unique combination of electrical and thermophysical properties that make its use in high temperature, high power and high-frequency electronics applications very attractive. The availability of a single crystal silicon carbide wafer of the required quality at a reasonable cost will fully realize the benefits of these devices in many areas of high temperature, high power microelectronics. During Phase I, the feasibility of this new approach to producing single crystal silicon carbide will be demonstrated. The technology will optimized during Phase II with the aim of commercializing the process in Phase III. Successful development of a cost-effective method for producing quality single crystal silicon carbide will enable the application of high temperature, high power microelectronic devices in the automotive, aerospace, chemical refining, nuclear power, energy production, and other industries. ***